Project Kaleidoscope Exchange Network

The primary purpose of this project is to establish a national dissemination network and disseminate the results of Project Kaleidoscope-Phase I, an NSF-supported effort to begin a major reform movement in science an mathematics education at the undergraduate level, with a focus on liberal arts institutions. The dissemination effort, to be coordinated by the Independent Colleges office, includes the following activities: A series of regional colloquia, symposia, and workshops, and two national PKAL colloquia; Presentations at regional and national meeting os disciplinary and educational associations; Implementation of a system of mentor/consultants available to assist institutions in their reform efforts; Publication of meeting proceedings and major position papers on critical issues in the reform movement and Evaluation of the impact of reform efforts in undergraduate science and mathematics education. Building the network and dissemination efforts will be strengthened significantly by utilizing an electronic network to be established on the Internet. The electronic network will be used for communications, conferencing, and file exchange.